Scripps Institution of Oceanography - Shipboard Scientific Support Equipment

Scripps Institution of Oceanography (SIO) requests funds for Shipboard Scientific Support Equipment (SSSE) that is needed to carry out NSF-supported scientific research. Working within the collaborative framework of the University-National Oceanographic Laboratory System (UNOLS), the proposed equipment will be maintained by the SIO ship operations department for use by NSF-supported scientists from institutions nationwide who require these seagoing facilities. Equipment is requested for the three vessels operated by SIO: RV Sally Ride, a 238-foot, Navy-owned vessel built in 2014, RV Sproul, a 125-foot state-owned vessel and RV Roger Revelle, a 273-foot, Navy-owned vessel. Sally Ride completed 282 funded days in 2019, only 13 of which were for NSF. In 2020, the ship is scheduled for 254 days with 102 of them in support of NSF-funded science. Sproul completed 90 days in 2019, 6 of which were for NSF. In 2020, the vessel is scheduled for 81 total days with 2 of them for NSF. Revelle is currently in mid-life refit but completed 85 days in 2019, 72 of which were for NSF. In 2020, she is scheduled to sail 177 days with 98 of those for NSF.

With this proposal, SIO provides technical descriptions and rationale for the acquisition of the following SSSE:

1) Wide-throat block R/V Robert Gordon Sproul $26,014
2) Trawl winch level wind R/V Robert Gordon Sproul $127,013
3) Flagging block sheave tread R/V Roger Revelle $13,041
4) Flagging block sheave tread R/V Sally Ride $13,041
5) Replacement portable crane for R/V Roger Revelle $222,760
$401,869
Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.